Conference: Conference: 2025 Biannual research and education conference of the Association of Environmental Engineering and Science Professors (AEESP) at Duke University

This NSF award supports the 2025 Association of Environmental Engineering and Science Professors Research and Education bi-annual conference. The event will take place in Durham, North Carolina, May 20-22, 2025. The conference focuses on human-environmental systems under global change. It will bring together roughly 700 environmental engineering researchers and educators to share ideas and to form new partnerships. The conference will feature workshops, technical presentations, a plenary program, and networking opportunities. The goal aims at spreading research and innovation. The event encourages participation from diverse communities.

North Carolina consortium of universities (Duke, North Carolina A&T State University, NC State, UNC-Chapel Hill, UNC-Charlotte) will host the 2025 Research and Education Conference for the Association of Environmental Engineering and Science Professors (AEESP) in Durham, North Carolina on Duke University’s campus. Approximately 700 attendees will participate in this conference. The 2025 Conference theme is “Information and Engineering for the Public Sector: Data-driven stewardship of human-environmental systems under global change”. Its program features innovations by the AEESP community in research and education to develop and translate information for the public good. The conference will strengthen the connections between the AEESP research and education community with governmental agencies and diverse stakeholders. The conference format, including Workshops, Technical Sessions, Poster Sessions, Plenary Program, External Liaison, Social and Networking, Postdoc and Graduate Networking, provides ideal means for the dissemination of research results, through close interaction of participants from industry, government laboratories, and academia.